Security Session, Globecom'87, Network Security Session

This award is to provide travel funds for two distinguished academic researchers to present papers in the session on "Security for Future Network Communications," November 15-18, 1987. The PI is chairing the session, and will make the selection of the two academic researchers from a list of candidates. The session will cover topics important to U.S. technology and commerce, including: protecting communications on radio, wire, and fiber media; security in multipoint communications; speech security; secure electronics transactions; new security services; protecting subscribers personal information; and security of call-in databases.